Workshop on Molecular Dynamics on High Performance Computersto be held June 11-15, 1990

The workshop is aimed at working research scientists who have basic knowledge of the field and need to become better acquainted with computational modeling strategies. The sub-title of the workshop: programs, methodology, selection, troubleshooting, emphasizes this point. Speakers from academia and industry will describe current new methodologies, compare parameterization schemes, and share strategies. NCSA with its strengths in visualization and supercomputer applications will address a critical need for comparison and evaluation of high-performance computing methods and capabilities. The workshop will help transfer high performance computing technology from front-line modeling research laboratories, both academic and industrial, into the hands of a wider audience. In general, the workshop will address the needs of researchers interested in using modeling methods as a tool to solve biological problems.